Topics in Lagrangian Geometry

Project Abstract
Title: TOPICS IN LAGRANGIAN GEOMETRY

The project will investigate the question of the existence of
special lagrangian submanifolds in Calabi-Yau manifolds using
variational techniques and using mean curvature flow. The variational
techniques involve the study of constrained variational problems
for lagrangian cycles. These problems can be formulated in arbitrary
Kaehler (or symplectic) manifolds and involve minimizing volume among
lagrangians that represent a fixed homology class and proving optimal
regularity of the minimizer. In particular the project hopes to show
that if the ambient manifold is a Calabi-Yau $3$-fold then, for a
suitably formulated problem, the minimizer is special lagrangian. It
has long been known that the mean curvature flow of a lagrangian
submanifold preserves the lagrangian condition if the ambient
manifold is Kaehler-Einstein. The project intends to investigate the
regularity properties of the mean curvature flow of a lagrangian
submanifold of a Kaehler-Einstein manifold. In particular, it
intends to investigate the conditions under which the flow does and
does not develop singularities in finite time.

Variational problems with geometric constraints and mean curvature
flow in codimension greater than one are on the frontier of
mathematical analysis. These problems are natural in geometry but
they are also important in many different applied problems. In
material science a ``model'' problem asks to find a minimizer of
``kinetic energy'' among area preserving maps between disks and to
find the optimal smoothness of the minimizer. At present, the
existence of a minimizer is known but nothing is known about its
singularities. Parts of this project are closely related to this kind
of ``regularity'' question. In string theory well known work
conjectures the existence of a certain class of volume minimizing
three dimensional surfaces called special lagrangian submanifolds.
This project is a direct attempt to answer this question in the
affirmative. Mean curvature flow in various codimensions models many
different physical phenomena. This project attempts to exploit the
``lagrangian'' constraint to get an understanding of mean curvature
flow in higher codimensions. This subject is relatively unexplored.
The techniques investigated in this project hold the promise of
enhancing the interaction between geometry and various fields of
applied mathematics and engineering and in bringing new results and
techniques into these fields.